U.S.-Italy Dissertation Enhancement Research: Shape Deposition Manufacture of Mesoscale Robotic Devices

0138436
Cutkosky

This six-month award will support a dissertation enhancement project of Sean Bailey, a student in the Department of Mechanical Engineering at Stanford University. He will work with Prof. Paolo Dario at the ARTS Laboratory at the Scuola Superiore Santa Anna (SSSA), in Pisa, Italy. The objective of Mr. Bailey's research is to extend the layered manufacturing approach of Shape Deposition Manufacturing (SDM) to mesoscale robotic devices. The researchers at SSSA are experts in the design of small medical devices. While at SSSA, Mr. Bailey will become familiar with state-of-the-art small-scale processing machines. He will then develop SDM techniques using these machines for mesoscale robots and demonstrate these new techniques by producing a highly sensorized mesoscale probe. A particular goal is to formalize the process planning constraints that apply in this specialized variation on SDM.